CISE Research Instrumentation: Equipment for Research in Special Purpose VLSI Architecture

A system incorporating very large storage capacity and high computational power will be developed for this project involving special purpose VLSI applications. These applications include: * VLSI architectures for compression algorithms. * VLSI Algorithms for computer vision. * VLSI Algorithms for signal processing. * High level synthesis tools for VLSI.